Slow Light Enhanced Mid-infrared Nonlinear Optical Devices

The objective of this program is to conduct experimental investigation of novel nonlinear material and
waveguide designs and to develop a compact, integrated photonic device platform for nonlinear optical
devices operating in the mid-infrared spectral region. There is a current dearth of nonlinear optical
devices in the mid-infrared and the proposed research program aims to fill this void.
The intellectual merits are: (1) novel device architecture for slow light propagation with low loss and (2)
new tunable light sources and amplifiers for the mid-infrared frequency region. The slow light devices
are based on photonic crystals to enable dispersion engineering necessary for slow light but has radically
different designs to circumvent the fundamental limits imposed by scattering loss. Additionally, the
devices will be implemented in a chalcogenide material system, with high nonlinearity and Raman gain,
long infrared transparency, and a high glass transition temperature.
The broader impacts are many. First, the proposed work will broadly impact the applied physics and
materials science world by providing a new class of devices based on nonlinear-enhancement from slow
light. The capability of ultralow threshold for nonlinearities will open a wide application space for the use
of
devices with standard, low cost lasers. The potential to demonstrate a low-threshold nonlinear optical
device in the mid-infrared will be transformative for applications in sensing, spectroscopy,
communications, medicine and more. The project is also designed to integrate research with education at
both undergraduate and graduate levels, attract underrepresented minority students, and offer outreach to
general public.